Supporting Oceanographic Research Missions Aboard the Research Vessel Atlantic Explorer

This project supports shared-use oceanographic technical services aboard the research vessel Atlantic Explorer, a vessel operating as part of the U.S. Academic Research Fleet. These technical services help maintain reliable access to scientific instrumentation and high-quality oceanographic observations needed to study ocean circulation, marine ecosystems, air-sea interactions, seafloor processes, and other ocean systems. The project strengthens shared research infrastructure aboard fleet vessels while supporting modern ocean science, workforce development, and research and education activities relevant to ocean observation, environmental prediction, coastal resilience, and stewardship of marine resources.

The project provides shipboard technical support, maintenance, calibration, operation, and management of shared-use scientific instrumentation supporting research conducted aboard the vessel. Technical personnel support scientific missions through instrument preparation, deployment support, data collection assistance, troubleshooting, and maintenance of observational systems used by researchers from institutions throughout the United States. These activities help maintain the technical infrastructure necessary to support a broad range of oceanographic research conducted aboard Academic Research Fleet vessels and ensure continued access to reliable scientific capabilities and high-quality observational data for the research community.